Connection to NSFNET

9508267 Franciosi Lasell College requests support from NSF for connection of the campus networks to BBN Planet. BBN Planet, a midlevel network will provide operations management and information services and it will give the Lasell College a 56KB connection to the Internet connection, a collection of interoperable networks that connect most research and education organizations in the United States. The College needs the Internet connection to be able to access information resources throughtout the state, the nation and the world. The connection will benefit the faculty, staff students of Lasell College.